A Program for Strengthening the Infrastructure for Research in the Department of Mathematics at Hampton University

The proposed program is designed to strengthen the existing Masters Degree Program in Applied Mathematics at Hampton University, to increase the interaction of faculty members with undergraduate students, to support the research activities of junior level faculty, to provide a solid foundation of research activities within the department to help progress to the goal of instituting a strong Ph.D. program in Applied Mathematics, and to allow for increased access to professional activities for minority students and faculty members.